Planning: Planning Grant for EPSCOR Chemurgy 2.0 - Advanced Biomanufacturing for Next-Generation, Bio-inspired Products

The activities proposed in this planning grant are intended to support the development of a meritorious
RII Track-1 program for the state of Iowa. This program will be state-wide, with integration of individual
researchers, institutions and organizations. It will both build research capacity, in order to implement a
sustained increase in research competitiveness, and build human infrastructure in the form of
broadening participation and workforce development. During implementation of the planning grant, the team
will assess the existing research and human infrastructure, coordinate and plan state-wide efforts, host
an all-hands meeting, and develop a collaboration plan.

The planning grant from Iowa State University presents a plan for the development of a Chemurgy 2.0 proposal
for submission to the FY23 RII Track-1 competition. Planning activities have been ongoing for several months
now, and the funding requested will allow a consultant to orchestrate the discussions within Iowa needed
to formulate a strong full proposal.